CAREER: Next-Generation High-Sensitivity Damage Detection and Sensing Based on Enhancing Nonlinear Dynamics and Phase Space Pattern Recognition

CAREER: Next-Generation High-Sensitivity Damage Detection and Sensing Based
on Enhancing Nonlinear Dynamics and Phase Space Pattern Recognition

Most vibration-based damage detection methods are designed for linear
vibrations while far fewer apply to nonlinear systems. Many of the
current nonlinear methods have important limitations, e.g. difficulty
tackling high-dimensional systems. This integrated research and
educational program eliminates several of these limitations by using
a radically different approach.

The main research goal is to develop robust and highly sensitive
nonlinear vibration-based techniques for sensing and detecting
the location and level of multiple simultaneous damages in
high-dimensional systems such as complex fluid-structural
systems.

The main educational goal is the development of a program focused on
enhancing engineering intuition with emphasis on nonlinear dynamics.
The educational effort integrates research with a broad spectrum of
educational and outreach activities, and includes: (a) integrating
nonlinear dynamics into undergraduate courses in engineering,
(b) developing advanced undergraduate and graduate courses on
nonlinear dynamics, (c) implementing outreach activities for K-12
students.

This integrated research and educational program will provide a new
and comprehensive methodology for damage detection in
high-dimensional nonlinear complex systems. This research will make
significant contributions to the fields of structural dynamics,
fluid-structure interactions, and sensing, and it has immediate
potential to impact industry because it addresses important
practical engineering problems in, for instance, aerospace, civil
and sensing technologies. Also, this research represents a potential
benefit to society at large, and it is strengthened by a broad
dissemination to enhance scientific understanding.